Calculation of Large-Scale Engineering Flows by Parallel Spectral Element Methods

The economical solution of complex three dimensional fluid flow problems by direct numerical simulation techniques requires simultaneous, compatible advances on the algorithmic and architectural fronts. The architectural foundations for the next ten-fold improvement in simulation performance are now established in the form of resource efficient massively parallel processors. Work to date on parallel algorithms has focussed on the fundamental aspects of parallel soultion of partial differential equations (e.g., load balancing, communication latency) in the context of simple discretizations of idealized in non-general geometires. The extensions of these parallel concepts and constructs to the numerical solution of complex engineering flow problems is the subject of the current proposal. The ultimate goal is the parallel solution of a broad class of flow problems at supercomputer speed, but at a fraction of current supercomputer cost.